HDCCSR: Scalable Dependability in Componentized Software via Self-Stabilization

----------------------

Scalable Dependability in Componentized Software via Self-Stabilization
PI: Anish Arora, Professor, CIS, The Ohio State University

This proposal addresses the problem of unanticipated software faults,
which inevitably occur in large-scale software systems, including
those used by the United States space program for missions such as
the International Space Station, by developing tools and frameworks
for self-stabilization, i.e., for restoring system behavior if it
deviates from its intended one by detecting and correcting state predicates.

Extant techniques for designing/composing stabilizing systems do not
scale well. The proposed research addresses complexity as follows.

- A component is typically simpler than the system as a whole. Hence
stabilization will be added per component and then they will be composed
into a stabilizing system, taking into account issues of dependency and
interference.

- A component's specification is usually simpler than the component itself.
hence stabilization will be added per component with respect to only the
component specification,

The proposed research will demonstrate that the software tools and frameworks
resulting from these ideas measurably and predictably improve dependability
in a NASA system. The techniques and tools will provide for the first time
the ability to make large systems tolerant to unanticipated faults. Besides
space craft, they can also be used with critical systems such as aircraft control,
medical instruments, the telephone network, etc.